I/UCRC Planning Grant: Center for Biocatalysis and Bioprocessing of Macromolecules

EEC-9909030
Gross
Polytech University

This award to the Polytech University awards funds to plan the feasibility of establishing an Industry/University Cooperative Research Center for Biocatalysis and Bioprocessing of Macromolecules (BBM). A planning meeting will be held to finalize the research program and to assess company interest to participate. Industrial members will be recruited, and the structure and operation of the Center will be finalized.